Nonparametric Inference for Complex Physical Models

The recent years have seen rapid growth in the depth, richness, and scope of
scientific data, a trend that is likely to accelerate. At the same time,
simulation and analytical models have sharpened to unprecedented detail
the understanding of the processes that generate these data. But what has
advanced more slowly is the methodology to efficiently combine the information
from rich, massive data sets with the detailed, and often nonlinear,
constraints of theory and simulations. This project will bridge that gap.
The investigators develop, implement, and disseminate new statistical methods
that can fully exploit the available data by adhering to the constraints
imposed by current theoretical understanding. The central idea in the
work is constructing sparse, possibly nonlinear, representations of both
the data and the distributions for the data predicted by theory. These
representations can then be transformed onto a common space to allow sharp
inferences that respect the inherent geometry of the model. The methodology
developed in this project will apply to a wide range of scientific problems.
The investigators focus, however, on a critical challenge in astronomy: using
observations of Type Ia supernovae to improve constraints on cosmological
theories explaining the nature of dark energy, a significant, yet little-
understood, component of the Universe.

Crucial scientific fields have enjoyed huge advances in the ability both to
gather high-quality data and to understand the physical systems that generated
these data. Nevertheless, the full societal and scientific value of
this progress will only be realized with new, advanced statistical methods of
analyzing the massive amounts of available data. The investigators develop
statistical methods for combining theoretical modelling and observational evidence into
improved understanding of these physical processes. The analysis of these data will
requirenot only new methods, but also the use of high-performance computing resources. There is a particular need for these tools in cosmology and astronomy, and this project will bring together statisticians and astronomers to combine expertise, but this research is motivated by problems that are present in other fields, such as the climate sciences.